A Mathematical Foundation for Matching Economies

A large segment of the economic literature is concerned with the study
of allocations that arise when markets are not well functioning. The
defining characteristics of this literature are its focus on
informational and spatial frictions and the desire to make them explicit
by assuming that economic interactions occur in small coalitions. The
traditional modeling tool is that of a matching framework. A limitation
of this literature is that the treatment of matching--as a
technology--is mostly descriptive and hazily formalized. These
shortcomings contribute to blur the precise connection between the
constraints imposed by the matching technology, the environmental
frictions, and the possible allocations. The proposed research will
develop a fully integrated mathematical approach to matching mechanisms
by formalizing and studying the following: (i) the mechanics of
matching in bi- and multi-lateral settings (deterministic and
stochastic); (ii) the links between matching and trade frictions,
providing exact mappings between technologies and
informational constraints; (iii) the allocative implications of
different matching mechanisms in general monetary and non-monetary
economies. A clear understanding of these connections will advance the
formulation of sophisticated economic models based on markets with
impaired functioning
and promises to clarify the implications of policy.

A major concern of economics is how scarce resources are allocated when
markets are not well functioning. Market frictions often involve
scarcity of information or geographical separation or inadequate
institutions. In general, the economic literature makes these frictions
explicit by modeling trade as occurring in small groups--often pairwise
matches. The resulting matching frameworks are used to answer basic
questions in a variety of settings;
from economic governance to unemployment and from business cycles to
monetary policy. A shortcoming of these frameworks is that the modeling
of matching technologies is mostly descriptive and superficially
formalized. This blurs the exact link between the obstacles faced by
participants in the market place and the trades they can execute. The
proposed research will develop a theoretical foundation for this class
of models. It will formalize the
mechanics of how different trading frameworks can facilitate (or
obstacle) the exchange of information and other economic resources. It
will precisely chart the link between the frictions impinging on the
trading process and the possible allocations. This will advance our
understanding of how to construct sophisticated economic models whose
central trait is markets with impaired functioning. The results will
have applications to other disciplines, such as biology (spread of
diseases), sociology (formation of social groups), and engineering
(network communication).